CAREER: MIMO Fading in Links, Cells, and Networks: Coding and Information Theoretic Challenges

We are in the midst of a new wireless revolution, brought on by
the adoption of wireless networks for consumer, military,
scientific, and wireless applications. This revolution presents exciting new
challenges due to the marked departure from the traditional
additive white Gaussian noise channel paradigm. Recently, antenna diversity techniques have
received considerable attention due to the significant information
theoretic gains promised for multi-input-multi-output (MIMO)
fading channels.

Our research can be broadly categorized in three main
thrusts: 1) Developing a unified algebraic coding theory for
point-to-point MIMO fading channels, 2) Developing joint coding and
scheduling algorithms for cellular MIMO channels, and 3)
Developing cooperative (i.e. antenna sharing) schemes for
ad-hoc MIMO channels. The first research thrust will
develop bridges between different branches in Algebra and
space-time coding. The cross fertilization between these two areas
is expected to introduce useful algebraic tools in space-time
coding research and formulate new problems of possible interest to
the mathematical research community. The second and third thrusts will
enhance the understanding of the information and coding theoretic foundations
of cellular and ad-hoc MIMO channels. The education
plan aims to expose students to the state of the art in wireless
communications and provide the well-rounded training needed for
both future academic jobs and leading-edge industrial positions.